Publication of Proceedings for the International Conference on Spin and Isospin in Nuclear Interactions; held in Telluride, Colorado, March 1991

An International Conference on Spin and Isospin in Nuclear Interactions will be held at the Telluride Conference Center, Telluride, Colorado, on March 11-15, 1991. The subject matter will cover new results from major US, Canadian, and European intermediate energy nuclear physics user facilities on a variety of subjects, including: effective nucleon-nucleon interactions, Gamow-Teller excitations, charge and spin exchange reactions with pions and nucleons, polarization studies with high energy leptons, polarimetry techniques, neutrino physics, and astrophysics. The meeting is fifth in a triennial series.